Postdoc: Low-Level Optimizations for Next-Generation Disk Devices

0203922
Bianchini, Ricardo
Rutgers University New Brunswick

CISE Postdoctoral Associates in Experimental Computer Science: Low-Level Optimizations for Next-Generation Disk Drives

File input/output (I/O) has traditionally been a performance problem for several applications. The proposed research seeks to optimize the performance of file I/O operations by taking advantage of next-generation disk devices (i.e., devices with embedded and programmable high-performance processors). The postdoctoral research associate will be involved with the introduction and evaluation of a new device-level architecture, new disk controller software, and modifications to standard host operating systems. The expected outcomes are performance improvements for a wide spectrum of disk workloads, ranging from random and small file accesses to large sequential accesses. Evaluations will employ combinations of detailed simulations and actual implementations along with native executions of disk-bound applications (e.g., video-on-demand, data mining).